Nonlinear Signal Processing

The proposed research entails the development and evaluation of techniques for analyzing time series generated by nonlinear systems. The algorithms which result will be compared to existing filtering techniques using test data generated by numerically integrating systems of well-characterized, chaotic, nonlinear, first order, ordinary differential equations. Rissanen's information-theoretic technique will be used to compare models generated by a variety of techniques. As new techniques are developed, they will be applied to real data derived from speech recognition experiments, hydrodynamic experiments, and coherent solid state laser arrays.